Algorithm Visualization Laboratory

This project utilizes a laboratory with graphics capabilities to display the effects of algorithms on data structures. Using animation, data structures are displayed as they are manipulated by algorithms so that students may understand the data structures and algorithms from a conceptual level apart from their representation in a particular language. The algorithm visualization laboratory has six (6) Macintosh II microcomputers participating in a local Appletalk network. One of the six systems serves as a gateway to an Ethernet network linking the Macintosh II's to the University's VAX 11-780 and MicroVAX. Most algorithm software development is done on the MicroVAX and then transmitted to the Macintosh computers for graphic display. The lab uses an overhead projection system capable of presenting an interactive Macintosh session on a large screen. Real-time display allows the instructor to demonstrate concepts of algorithm performance and it allows students to experiment with algorithms and data structures on an individual basis - they learn about algorithms by watching them perform. This award is being matched by an equal sum from the grantee.